Social Sources of the English Only Movement

The subject of this proposal, the English Only Movement, has shown rapid growth in membership and influence over the last ten years. The proposed work involves some exploratory analyses of conditions fostering political movements generally and this movement in particular. The data under analysis consist of six exit polls taken in Texas and California. Also to be undertaken are content analyses of a growing collection of media materials about this movement and additional interviews with its leadership. This proposed work will significantly extend the author's previous work on language cleavage, interethnic group conflict and education in countries with multi-lingual populations.